Engineering Protein Aggregation and Fibril Formation

0432625
Blanch

The goal of this proposed research is investigate the roles of primary sequence and conformational characteristics in determining protein aggregation behavior. The specific objectives are directed toward experimental and theoretical investigations of the underlying mechanisms. The ultimate goal is to control aggregation. To assist in uncovering forces and mechanisms essential to manipulate protein aggregation properties, the proposed research focuses on the effects of sequence patterns and solution parameters that impact the competition between aggregation and refolding. The experimental work will be performed on multiple systems of interest, including short oligopeptides as well as specific regions of three different proteins, all of which are suitable candidates for studies of aggregation.